Conference Support: Student Travel Grant - 1999 American Control Conference; June 2-4, l999; San Diego, CA

This proposal seeks to sponsor engineering students to attend the 1999 American Control Conference sponsored by the American Automatic Control Council. The conference will focus on theoretical issues, engineering methodologies and industrial applications in every aspects of control research and development. The goal of this proposal is to develop an opportunity for students to be informed about the most recent advances in the areas of control theory and practices. Travel support for student attendance will be advertised nationwide and women, minorities and disabled students will be especially encouraged to apply for sponsorship.